Cultural Reconstruction in Argentina

This project is a study of the intense public debate about the political persecution of the Argentine people under the 1976-82 military juntas. The society is now in the process of coming to grips with these activities, and explaining them to itself. The PI, a cultural anthropologist, will interview members of four groups in Argentina: the armed forces, the Church, human rights organizations, and the intelligentsia. The researcher will also observe public activities, conduct in-depth interviews, and analyze speeches and other public media. This research is important as several societies in the world are in the process of reconstruction after periods of intense internal violence. Understanding how this process takes place will help us understand the behavior of other nations we interact with.